Few-level Models in Atomic Radiation Theory

Entanglement of quantum states has emerged as an important theme in physics. The current proposal focusses on ways to quantify, control and measure entanglement using the Schmidt decomposition.